CAREER: An Integrated Digital Signal Processing Framework for Optimized Wireless Communications

Abstract for CCR-9875805

Wireless communication systems, particularly code-division
multiple access (CDMA) systems, are vital building blocks of the rapidly
evolving global information infrastructure. Digital signal processing (DSP)
is playing a central role in wireless communications due to the increasingly
sophisticated processing required in the physical network layer. The major
DSP challenges in CDMA system design stem from three key factors that
dominate the processing in the physical layer: (1) channel propagation
dynamics; (2) multiaccess interference; and, (3) the inherent complexity of
the DSP algorithms. The proposed research has two primary goals for meeting
the physical layer CDMA challenges:

* Development of DSP tools and theory to launch an integrated attack
on time-varying multipath dispersion, time-varying multipath fading, and
multiaccess interference.
* Development of design strategies for practical high-performance
systems that optimize the complexity versus performance tradeoffs inherent
in the DSP techniques.

A new unified framework based on DSP in canonical multipath-Doppler
coordinates will be developed to meet these goals. The canonical coordinates
are defined by a fixed basis that is derived from a fundamental
characterization of channel propagation dynamics in terms of certain discrete
multipath delays and Doppler shifts of the signaling waveform. The canonical
coordinates naturally connect the key physical layer facets and thus
facilitate a unified DSP development. First, all processing relating to
propagation effects can be directly performed in the coordinates. Second,
the same coordinates provide a canonical subspace-based representation
of the desired signal and multiaccess interference. Finally, the simple
computation and subspace structure of the coordinates affords a direct handle
on complexity. At the heart of the research is a particularly promising
innovation: whereas existing interference suppression techniques treat
propagation effects as a nuisance, canonical coordinates exploit the subspace
structure induced by channel effects for enhanced interference suppression.

The educational objectives of the program include integrated curriculum
development in DSP and communications, a thematic approach to teaching to
facilitate conceptual thinking, and leveraging of technology to extend the
boundaries of traditional instruction and learning.